Presidential Young Investigator Award: Architectural Issues in Parallel and Distributed Computing

Ramachandran Beehive is a project that investigates the software and hardware issues in the design of scalable shared memory multiprocessors. The architecture is designed to support a form of weakly consistent memory model in a cache-based multiprocessor environment. The novel aspects of the architecture are reader- initiated cache coherence, latency tolerance through buffered writes, elimination of false-sharing, and efficient support for synchronization via the caches. The architectural features are designed to be compatible with an interconnection network. Research issues include: Compile-time and runtime issues in the exploration of the weak memory model and the architectural features, novel simulation techniques for the evaluation of such complex parallel systems, and exploration of optical interconnects for such scalable architectures.